On the Iterative Behavior of Open Maps

Open maps between topological spaces have been studied extensively
for many years. For example, Stoilow showed in early 1900 that
each open and light map of the 2-sphere is a branched covering
map. However, much less is known about the iterative behavior of
such maps. For example it is still not known if every branched
covering map of the sphere has a fixed point in every proper
invariant sub-continuum with connected complement. In contrast,
using mostly analytic techniques, the dynamics of rational maps R
of the sphere are quite well understood. However, the analytic
approach is difficult in certain limit cases (i.e., if R has
either neutral periodic points or recurrent critical points). The
only case where significant progress was made towards a detailed
analysis of the dynamics of all continuous functions is for maps
of the unit interval. We believe that significant new results are
also possible for open (and open-like) maps on other simple spaces
(i.e., manifolds or dendrites) without an analytic or one-to-one
assumption. Some progress in this direction was made for minimal
(not necessarily one-to-one) maps on manifolds and certain
compositions of open and monotone maps on the sphere.

The long term behavior of a system is determined by a set of
equations and given initial conditions. The system can be
described by a function f, acting on a space X, with a given
initial value x (the "state of the system"). The long term
behavior of the system can then be described by iteration: the
initial value x=x(0), the state of the system at time zero, leads
to the value x(1), the state at time one, which leads to x(2)
etc. The limit behavior of the sequence x(0), x(1) describes the
long term behavior of the system. It is known that, even for very
simple systems, the long term behavior of the system may be
chaotic. The complexity of the system is governed by the
complexity of the space X and the function f. In this research
project we propose to extend information about the long term
behavior of systems using more general spaces and a larger class
of functions.